Comparative Osteology and Phylogenetic Relationships of Fossil and Living Sturgeons (Actinopterygii, Acipenseriformes)

ABSTRACT

Sturgeons, paddlefishes and their fossil relatives form a small
group of fishes from the Northern hemisphere called Acipenseriformes that
is believed to have split off from other ray-finned fishes (the
actinopterygians) some 150 million years ago. The morphology of living
sturgeons (25 species) has remained largely unchanged since they first
evolved. Although there have been many studies of sturgeon morphology,
there never has been a study that is detailed or comprehensive enough to
allow modern studies of their evolution. The new study of the skeleton of
fossil and living sturgeons by Hilton, Grande and Bemis has two main goals.
The first objective is to describe in detail the skeleton of the shortnose
sturgeon (Acipenser brevirostrum), a small species of sturgeon found in
coastal rivers of eastern North America. This study will be based on
several types of specimens, including dry skeletons, hand cleaned skeletons
that are stored in alcohol, and cleared and stained skeletons (in which the
soft tissue is made clear, cartilage is stained blue and bone is stained
red). Specimens representing all life history stages will be studied, from
the earliest embryos to the oldest specimens available. Such an approach
allows observations of changes of morphology due to growth and development
of the skeleton. The results of this study will be published in a large
format monograph, illustrated with photographs for documentation and line
drawings for interpretation, accompanied by clear text descriptions. The
intention is that this monograph will serve as a lasting contribution to
the knowledge of the anatomy of sturgeons and a standard reference for
anatomical studies of primitive ray-finned fishes.
The second part of this study concerns tracing evolutionary
relationships among living and fossil sturgeons. Most fossils that are
identified as sturgeons are very fragmentary, and only after a detailed
study of the living members of a group can such specimens be properly
interpreted. Additionally, new comparative data generated during the first
part of the study will be used to formulate new hypotheses of
relationships. All previous morphological studies of the relationships of
sturgeons are inadequate for various reasons. For instance, many studies
have looked only at relationships of sturgeons from a particular geographic
region or country. Evolution has not occurred within political boundaries,
and Hilton, Grande and Bemis' study will be the first to incorporate
morphological data for all sturgeons on a worldwide scale. All species of
sturgeons are afforded some form of protection, with many listed as
endangered. The precarious conservation status of many sturgeons make
studies of their evolutionary history even more critical.